TLTG Environmental Science

9450241 Brady Texas Learning Technology Group TLTG Environmental Science This project intends to develop two multimedia instructional program in the environmental sciences that relate to issues in the community. These programs are entitled The Case of the Leaking Substance and Oil and Water. The first of these two programs is based on leaking fuel storage tanks in a fictitious low-income neighborhood which is polluted by leaking petrochemical storage tanks. The program is to consist of a videodisc case study, hands- on activities, discussions, and laboratory activities. The second program is to investigate various factors that affect the level of soil and ground water pollution near leaking fuel storage facilities. Both programs can be used separately or together in an integrated format. Print-based materials are to include a student edition of laboratory activities, notes, selected readings and databases of resources needed for the activities and a teachers edition which supports the programs and provides assessment items. ***